Coherent Pion Production in Heavy-Ion Collisions (Physics)

Professor Philip Deutchman is a major contributor to the field of heavy-ion collisions in nuclear physics, i.e., the study of what happens when you scatter one atomic nucleus on another. In the last few years he has become an expert regarding the problem of pion production below the threshold energy from heavy- ion collisions. In the present proposal he plans to expand his work on this problem by calculating pion production through the mechanism of delta-hole and nucleon-hole excitations in peripheral nucleus-nucleus calculations. By including quark degrees of freedom in his calculations, he hopes to find quark signatures which experimentalists could look for in heavy-ion collisions at intermediate to high energies. One of the important fields of nuclear physics is that of nucleus-nucleus collisions, known as heavy-ion collisions. In these collisions it is possible to produce pi-mesons, also called pions. Professor Deutchman has been an important contributor to the area of pion production below the threshold energy in heavy- ion collisions. He has developed useful computer codes for computing this process. He now proposes to expand his computer codes to include more physical processes, such as the formation of delta particles in the interaction. Quark degrees of freedom will also be included. This research is important in developing a consistent theory of pion production in heavy-ion collisions and may predict quark signatures which could be looked for experimentally in intermediate high-energy heavy-ion collisions.